CAA: Determination of Slip on Faults in California Using VLBI, GPS, and EDM Measurements

The PI's long term goal is to study fault activity in southern California using geodetic data. The first step is to determine a velocity model for southern California. The three geodetic data types which she plans to use are very long baseline interferometry (VLBI), the Global Positioning System (GPS), and electronic distance measurements (EDM). The second step is to convert these surface measurements to infer slip on known faults in southern California. Faults contribute differently to the measured surface velocity depending on their slip rate and geometry. She has worked with GPS data and VLBI solutions since 1988. She will visit and work at the U.S. Geological Survey in Menlo Park where EDM data collection in California was directed.